CEDAR: Extended Analysis of Multi-Instrument Observational Data Sets from AIDA, ALOHA and Urbana, Illinois

This is a study to investigate the relationship between fine-scale neutral atmosphere structure, acoustic gravity waves, tides and the presence of sporadic sodium, iron and ion layers in the middle atmosphere. The study will make use of data obtained with radars and lidars during several observational campaigns over the last fifteen years. The observations will be compared to determine differences in the low and mid-latitude tidal and gravity wave processes and how they relate to layer formation. A parallel theoretical/numerical modeling effort will concentrate on formation of sporadic neutral and ion layers and on the breaking of acoustic gravity waves above the mesopause. The lidar data will be added to a centralized data base that will be accessible via the Mosaic networking system.